Stochastic Analysis of Vortex Filaments

Bessaih
DMS-0608494

The investigator studies random vortex filaments and their
relationship to turbulent flows. She develops a rigorous
stochastic description of filament structures, studies filament
dynamics, and examines mean field limits for interacting vortex
filaments and their relation to the Euler equations. While
Brownian semimartingales are the stochastic processes that have
received more attention in other studies of random vortex
filaments, here extension to stochastic processes with
multifractal structure or intermittency features is considered.
The underlying problem of turbulence is fundamental. Students
are involved in the project.

Random vortex filaments -- roughly speaking, vortical tubes
of fluid moving under the influence of a random process -- are a
model for the motion of fluids that could shed some light on the
development and evolution of turbulence in fluid flows. The
investigator studies random vortex filaments, considering their
structure, their dynamics, the behavior of large collections of
vortex filaments, and their relationship to the Euler equations,
a well-known model of fluid flows. Students are involved in the
project. Better mathematical models of turbulence in fluid flows
could lead to a better understanding of the mechanisms of
turbulence. This in turn would improve our understanding of
atmosphere and ocean circulation, with possible consequences for
weather prediction, and of fluid flows in engineering
applications, such as the design of faster and more economically
operated ships, planes, and vehicles.